Controlled Competitive Vulcanization of Rubber Blends

This research proposal involves the controlled use of competitive vulcanization to develop blended elastomeric systems with enhanced physical and mechanical properties. The only presently viable technique which offers the opportunity to study the chemical structure and distribution of crosslinks between the components of the rubber blend is solid state 13C NMR spectroscopy. It is now possible to obtain high resolution NMR spectra of these insoluble networks and to use these spectra to determine the microstructures and the chemical nature and number of the crosslinks in accelerated vulcanized elastomeric systems. The role of differential solubility and reactivity of vulcanizing agents, coupled with their diffusion from one polymer phase to another, in determining the nature and extent of crosslinking in the individual phases of the blend has not been determined. Our present knowledge of the specific chemical reactions during vulcanization of rubber blends is insufficient to permit the design of optimum accelerator systems, mixing processes and the appropriate cure cycles for rubber blends which will lead to products with specific improvements in the physical or mechanical properties. Competitive covulcanization of polymer blends is playing an increasing role in rubber production. To optimize the vulcanization process they must understand the microstructures and crosslinks developed separately in the components of the blends during the vulcanization process. Techniques have been developed for the study of the blend composition, blend microstructure and distribution of fillers between the phases of a blend, but no technique has been developed for estimating the chemical nature and extent of crosslinking in the different rubber phases of the blend. Without a knowledge of how to control the competitive crosslinking process, competitive vulcanization will continue to be empirical in its applications to rubber.